SHF: Small: Commodity Processors with Mainframe Reliability

The goal of this project is to create multicore computer processors
with near-mainframe reliability at commodity costs, where the primary
costs are additional hardware and additional power consumption. Should
this project achieve these goals, it would transform computing.
Reliable processors would no longer be a niche product; instead, they
would be the commodity products used in desktops, laptops,
smartphones, etc.

The research thrusts in this project include error detection, error
recovery, diagnosis of permanent faults, and self-repair for
tolerating permanent faults. The end result of this project will be a
hardware prototype of a low-cost, reliable multicore processor.
Building an artifact is a vital part of this project for two
reasons. First, a primary project goal is to keep power and area costs
low, and these costs cannot be accurately determined using high-level
simulation. Second, to transfer this technology to industry and
transform the industry, the chip makers must be convinced that the
solutions are viable. Chip makers have historically been
hesitant to accept ideas that have not been built, not least because
important issues can be hidden in a high-level simulator.